Technical Support for NORCOR Marine Sediment Coring System

9711684 Pisias This award to Oregon State University will provide a new shipboard core analysis laboratory (containerized van) for use on research vessels operated as part of the University-National Oceanographic Laboratory System. It will also provide support for modifications to piston coring systems operated by Oregon State University, and available to researchers at all U.S. universities. ***